Accentuating the Integration of Math and Science at Fayetteville State University

Through the Accentuating the Integration of Mathematics and Science (AIMS) program, Fayetteville State University will evaluate variables that contribute to low graduation rates and the steady decline of underrepresented minorities majoring in the mathematics and science fields. Comprehensive approaches will be developed to enhance student performance and progress in mathematics, computer science, chemistry, physics, and biology.

The infrastructure enhancement plan will include the following components:
(1) mathematics and science curriculum reform, improvement of gateway courses, and research training; (2) strengthening partnerships with industry, government, and other academic institutions to enhance the development of research programs on campus; (3) faculty development focusing on teaching/learning models, instructional delivery and assessment; and,
(3) evaluation and dissemination of project outcomes and best practices.